Miniature Fabry-Perot Interferometer

This project will use Fabry-Perot interferometry to develop a novel angular sensor. This approach is particularly attractive because the angular sensitivity of a Fabry-Perot interferometer is proportional to the width of the etalon. Hence, it can be made more sensitive by widening the etalon. A 10 mm wide etalon, for example, yields a whole fringe for every 50 micro-radians of change in the angle of incidence at a wavelength of 0.63 micron. This angular sensitivity can be used to measure secondary phenomena that induce rotation such as vibration and acceleration. Conventional Fabry-Perot etalons are polished slabs of glass whose flatness and parallelism are maintained to a high degree of tolerance. This process is costly and time consuming. This project will use an alternative way of fabricating Fabry-Perot etalons with the use of waveguide microfabrication technology. There are distinct economic advantages to this approach because the resultant micro-sensor will be cheaper than the conventional one when mass-produced. This project aims at determining the effectiveness of the microfabrication techniques at producing semiconductor micro-etalons whose performance is comparable to that of the glass ones. Lithographic techniques will be used to define the etalons on the waveguide structure. The new configuration will allow the angle of propagation inside the waveguide to vary continuously so that it can be used as an angular sensor.